Morphological Diversification and Classification of the Crinoidea

9404752 Ausich PI will attempt to delineate major aspects of the morphological diversification of the Crinoidea (crinoids) during their early history in Cambrian to Ordovician time (c. 450-500 million years ago). Crinoids were among the most important marine organisms throughout the Paleozoic, and are still living in today's oceans. PI will also construct a phylogenetic classification of the Crinoidea, and identify evolutionary trends, addressing diversification in a context of community ecology.